Marine Geological Samples Collection: Graduate School of Oceanography, University of Rhode Island

The core and dredge collections of University of Rhode Island will be maintained, samples distributed, and data provided to the NOAA National Geophysical Data Center. The core/dredge repository provides a valuable source of marine seafloor samples for use by national and international scientists.